Chemical Technology Education Collaborative (ChemTEC): Advanced Technology Education Project

Miami University Middletown's ChemTEC project continues to build on the solidly established Partnership for the Advancement of Chemical Technology (PACT) Consortium and the nationally recognized Partners for Terrific Science industrial/academic partnership. Through collaboration among all stakeholders, the ChemTEC project has six goals (which parallel the six themes in Gaining the Competitive Edge): 1) advancing the professional nature of chemical technicians, chemical technology educators, and students of chemical technology; 2) strengthening and expanding existing collaborations of stakeholders; 3) empowering chemical technology educators with content and pedagogical knowledge, time, resources, and professional support; 4) collaborating with industry to keep abreast of the latest technological developments to better prepare chemical technology students to compete in today's economic environment; 5) developing, publishing, and distributing content-rich, pedagogically sound curricular materials; and 6) developing curricular materials for the secondary school level that engage students in laboratory-driven challenges. To accomplish these goals, ChemTEC project programming focuses on six initiatives; Networking to Build a Community of Practice, Research Profile Project, Curricular Materials for Chemical and Related Technology Education, Professional Development Opportunities for Educators, Student Programming, and Dissemination and Outreach.